Analysis and Design of Multidimensional Filter Banks with Application to Image Coding

Fischer The basic goal of this research is to develop general analysis and design methods for multidimensional filter bank signal decompositions, featuring non-rectangular spectral partitions, and to integrate such methods with novel source coding techniques to produce a family of effective and efficient image and video coders. The work focuses on the following four tasks: 1. design exact/near-exact reconstruction multidimensional multirate filter banks for a variety of non-rectangular spectral partitions; 2. develop a theory for the subband coding gain and coder performance of multidimensional multirate filter bank source coders, emphasizing the filter banks developed in 1; 3. develop a theory for the influence of perceptual weighting functions in subband coding systems; and 4. determine a theory for the performance of linear prediction in a multirate filter bank signal decomposition, with emphasis on the source coding application. Fixed, forward adaptive, and backward adaptive prediction are being considered.